ACEDB 1995 Conference and Workshop to be held on May 14-22 in Santa Rosa, California

This award provides support for the 1995 ACEDB Conference and Workshop. ACEDB is a database which focuses on the biology of the intensively studied nematode worm Caenorhabditis elegans. The workshop will facilitate communication between database developers and users leading to continued rapid evolution of software and techniques for managing the increasingly large volume of information on this widely used model species. The 1995 workshop will be the fourth in a series of workshops on ACEDB dating back to 1992.